International Council for Exploration of the Sea

9413402 Steele Continuing support via the Woods Hole Oceanographic Institution will allow U.S. ocean scientists, especially those in the academic research community, to participate in activities of the International Council for the Exploration of the Sea (ICES) which are of special interest to the ocean sciences community, to the National Science Foundation and other Federal agencies, and to ICES as well. ICES is an intergovernmental organization designed to coordinate scientific research, management of fisheries, environmental concerns, and oceanographic matters of common interest to countries bordering the North Atlantic. Under this award U.S. academic research scientists will participate in selected ICES activities which include the annual ICES Statutory Meeting, meetings of ICES Working Groups, and scientific workshops and planning meetings.